Incorporating Calculators into Elementary Mathematics

9353068 Baggett This project investigates the use of calculators in teaching mathematics in grades kindergarten through five. From the beginning children are exposed to real numbers (not just positive integers), and they learn to perform arithmetic operations mentally on simple numbers and with a calculator otherwise. Drill is replaced by project-like lessons in which children are active participants. Children use real objects, make measurements, and engage in interdisciplinary activities as essential parts of the lessons. The Jackson Intermediate School District, Michigan, the University of Michigan, and the University of Colorado, are collaborating in the project. Teachers have been using many lesson units for several years in a number of participating schools. The planned outcome is to have a complete classroom-tested set of K-5 educational materials, three videotapes of classroom calculator activities ***